Ultrasonic Phased Arrays for Nondestructive Evaluation of Cementitious Materials and Structures

CMS9903535
PI: Shi-Chang Wooh
MIT
Ultrasonic Phased Arrays for Nondestructive Evaluation of Cementitious
Materials and Structures

This is a threeyear research proposal challenging the problems associated with
the nation's aging infrastructure. It is aimed to study and develop ultrasonic
phased array transducers most effective for assessing concrete structures and
cementitious materials.

Deterioration of civil infrastructure systems (CIS) has become a central issue
in reference to both safety and socioeconomic concerns. Deterioration itself is
inevitable, but nondestructive evaluation (NDE) may offer a solution for
preventing more serious consequences by detecting damage in its earlier stage.
Development of reliable, expeditious and effective NDE methods facilitates
early warnings of deterioration and structural integrity. Consequently, it
helps making decision of priorities on repair, retrofitting and replacement,
thus making contribution to assurance of public safety. Concrete structures are
major building blocks of CIS. As the impact of their degradation is widely
recognized, there are growing demands for efficient condition assessment
technology. NDE of structural concrete is a relatively undeveloped discipline
as compared with that of steel and other metals. The main mode of difficulty is
the heterogeneous and attenuating nature of concrete.

Ultrasonic phased array systems, widely employed in the area of medical
diagnostics, provide both quantitative measurement and imaging by means of
electronic scanning of a target object with an acoustic beam. This feature
eliminates the need of mechanical scanning and enhances nondestructive
inspection capabilities, which cannot be realized by static methods using
single element transducers. The potential advantages of the arrays include (1)
increased maneuverability of the ultrasonic beam, (2) greater area of
insonification from a fixed position, (3) high signal-to-noise-ratio, (4)
reduced inspection time and automated testing procedure, and (5) expeditious
imaging capability.

Phased arrays are recently extending their applications to metals and composite
materials as well. However, these arrays cannot be utilized for concrete since
they are designed without considering relevant aspects of importance. This
research program intends to deal with innovative low frequency phased array
ultrasonic sensors and their applications to cementitious materials.

It was observed from our previous study that acoustic focusing is more
effective in dealing with inhomogeneous materials, and the feasibility tests
demonstrated promising results that phased arrays can be utilized for concrete
if properly designed. Nevertheless, the analysis raised a potential problem of
enlarged "dead" zone that subsequently reduces effective inspectable area. This
is a serious deficiency from a practical standpoint, while our previous study
suggests an approach to resolve this challenging problem as presented in this
proposal. We would like to explore the possibilities of extending the study in
the proposed program.

The main objective of the proposed research is to examine the benefits and
limitations of using ultrasonic arrays for detecting cracks and other defects
within concrete structures. For this, a threephase research plan is proposed:
(1) modeling and optimization, (2) system development, and (3) implementation
and performance evaluation. It is anticipated that phased arrays will offer
extreme flexibility in transforming the data into useful information
presentable in either quantitative forms or imaging of defects in concrete.